Connection to NSFnet

Abstract Medical Center of Delaware - G. W. Keever Connection to NSFNET Proposal No. NCR-9416922 The Medical Center of Delaware's Wide Area Network links five main campuses, as well as several satellite primary care and home healthcare facilities throughout the state. With an Internet connection at the Center, pharmacists will be able to exchange protocols for new drugs, scientists can query their colleagues at other institutions on specific research questions, legal data bases and case studies, and physicians participating in clinical trials can log patient-care information and receive updates without leaving their offices. The Center will purchase and install the gateway hardware necessary to make an SMDS connection to the Internet by connecting to PREPnet, the closet mid-level network . Because of the Center's ever expanding involvement in research and other areas, the requirements for connectivity are no longer met by dial-up facilities. Providing a direct connection to the NSFNET has become increasingly important to meet the Center's existing and future needs.